Doctoral Dissertation Research in Political Science

The effects of the nomination campaign on the general election have been a concern of political scientists for decades. The concern is based on a nomination campaign which promotes factions with the party's rank and file membership. Conventional wisdom believes that the current presidential selection process is divisive and has negative consequences for the party's ability to run a successful campaign during the general election campaign. However, research on the divisive nomination and carryover effect hypotheses has yielded mixed results indicating a need for further research. This doctoral dissertation research project will examine the divisive nomination and carryover hypotheses in two distinct, but complementary ways. First, the student will rexamine the in- group/out-group expectation with an experimental design which simulates the presidential selection process. The second part of the design involves examination of National Election Studies data collected during the nomination and general election stages of a presidential campaign. The survey analysis will focus on attitude development and behavior by party identifiers toward the party nominee during the nomination and general election stages of the campaign. This examination of individual attitudes and behavior will link the two stages of the process and help in understanding how the entire presidential selection process influences attitudes and behaviors.